Planning Grant for a Federated Computing Research Conference

Computing Research is a very young research area. In the past few years it has become clear that computation is joining experimentation and mathematical analysis, providing a basic new scientific paradigm for how science gets done. In such a new and rapidly changing field, communication among researchers is particularly important. But the conference structure in computer science and engineering is highly fragmented and works against such communication. Important new research results are seldom presented at broad based national meetings. Consequently, broad based meetings are seldom attended by active researchers. A Federated Computing Research Conference is planned to address this problem. This conference will retain the advantages of smaller specialized meetings while at the same time facilitating communication among researchers in different subfields. Additional benefits of this meeting include: (1) economies of scale, (2) providing an educational function for the public, (3) stimulating new research. Planning for this conference will consist of developing discussions and consensus within the computing research community as well as careful planning of site selection and other arrangements. Most of the administrative effort in this planning will be carried out by a steering committee of prominent members of the research community.